ITR: /Groupware-Mediated Cooperative Programming: Teaching Web Technology to Non-Scientists

EIA-0082393
Hickey, Timothy
Brandeis University

ITR: Groupware-Mediated Cooperative Programming: Teaching Web
Technology to Non-Scientists

One consequence of the rapid growth of the Internet is the corresponding
rapid increase in the demand for teams of software and Web site developers
to support the creation of Web content and services. Complicating matters
is the need to train large numbers of workers with non-technical
backgrounds for the growing electronic workplace. This research explores
groupware-mediated cooperative tools to teach IT skills to novices. A same
time/different place groupware system will be built, deployed, and
experimentally tested that supports collaborative learning of Web
development and applet programming for a computer science general service
course serving social science, humanities, and fine arts students.